Collaborative Research: EMT/QIS: Quantum Algorithms and Post-Quantum Cryptography

Collaborative Research: EMT/QIS:
Quantum Algorithms and Post-Quantum Cryptography
Project Summary

Cryptography is the basic infrastructural element enabling privacy and
security for electronic transactions. However, when a large-scale
quantum computer is finally built, it will force us to abandon
established methods of cryptography, such as RSA and Diffie-Hellman,
which are in common use today. The proposed research will further
this line of disruptive quantum algorithmic research; but it also aims
to erect a new framework of secure post-quantum cryptography, in order
to maintain this societally critical infrastructure.

The most attractive approach for salvaging modern cryptography would
be to develop classical cryptosystems for which we have compelling
evidence of security even in the face of quantum adversaries. Recent
work by the PIs and their collaborators has shown that certain
algebraic problems possess hardness properties relevant even for
quantum algorithms. We propose to strengthen and leverage these
results in order to develop cryptographic schemes which can be carried
out by today's computers, but which will remain secure even against
quantum attack in the future.

In tandem with this effort, we propose to develop new quantum
algorithms for breaking cryptosystems based on conjugacy in the braid
group. This is one of the few remaining classical cryptosystems which
has not already been shown to be vulnerable to quantum attack.

Our research program is also directly integrated with graduate student
training at all four institutions, undergraduate educational
innovation, educational outreach, and broad scientific dissemination.